U.S.-Mexico Cooperative Research: Trail Following and Foraging Behavior of Hylesia Lineata

9908466
Fitzgerald

This US-Mexico award will support Prof. Terrence D. Fitzgerald of SUNY-Cortland in a research collaboration with Prof. Alfonso R. Pescador, of the University of Colima in Colima, Mexico. The researchers intend to investigate the trail-based foraging system of the tropical caterpillar Hylesia lineata. Specifically, they will determine the chemical/physical basis of trail-marking, the types of information the caterpillars extract from their trail-system, and the extent to which the trail-marking system of the caterpillar facilitates cooperative foraging and the exploitation of the host tree.

The Mexican researcher brings to the collaboration expertise in the ecology and bionomics of the insect from years of studying their ecology at the Estacion de Biologia Chamela. The US investigator brings to the project an extensive background in the study of sociality of caterpillars and methods to study and analyze their communication systems. It is expected that the resulting study should yield insights in the evolution of cooperation in this important and understudied group of social insects.
***